Research, Politics and Value Choices: Making Sense of Environmental Applications of Biotechnology

The research objectives of this project are to anticipate impacts in environmental applications of biotechnology and to illuminate ethical and value issues embedded in them. These issues stem from scientific uncertainty, the varying impact of the new technologies on different sectors of society, and disagreements as to how and by whom regulatory decisions should be made. Throughout the project, oversight will be provided by a balanced advisory board. The project is divided into two phases. In the first phase, the principal investigator and team members will write detailed technical scenarios for analyzing potential impacts for three specific applications of biotechnology: fast growing tree clones, herbicide resistant plants, and the decontamination of hydrocarbon wastes. The scenarios will be shared with scientists and policymakers in industry, government, academia and public interest organizations. Representatives of these groups will be interviewed to ensure that the scenarios identify the major alternative projections of future impacts of biotechnology and illuminate the scientific, social and political judgments and values implicit in the different perspectives. In the second phase of the project, the team will develop a casebook and simulation exercise based on the scenarios, for use with lay audiences. The simulation will involve participants in choosing and negotiating among conflicting data, disciplines, theories, values and public policy options. These and other background materials will be the basis for a one and one-half day conference. Fifty participants, representing the major interest groups in North Carolina that are likely to become involved in issues concerning the commercial applications of biotechnology, will be invited. The conference, including small group simulations, will be taped and transcribed. Results will include a series of scholarly articles. Ultimately the team hopes to publish a book and make the casebook and simulations available nationally. This project will illuminate ethical and value issues associated with environmental applications of biotechnology. It will also provide a model for reasoned deliberation and negotiation about choices and decisions which must be made about them. The principal investigator is very well qualified to undertake this project and she has credibility with from diverse interest groups that is necessary to make it successful. Institutional support is good; costs are reasonable; the research plan is both innovative and feasible; and results are likely to be useful and influential. Total support in the amount of $82,448 ir recommended, of which $62,448 comes from the National Science Foundation and $20,000 from the Department of Agriculture. Of the total, $40,000 is awarded in this fiscal year. $42,488 will be awarded in fiscal year 1988.